Experimental Studies of Breaking Waves

9302203 Liu Research is to be carried out on breaking surface waves. The approach is largely experimental, with some modeling of the breaking process also included. Both periodic waves and wave groups with a modulated amplitude will be investigated in a wave tank at constant depth. Breaking wave groups on a sloping bottom simulating beaches will also be investigated. Experimental tools will be both two dimensional LDV, as well as Particle Imaging Velocimetry. Wave breaking and associated sediment transport are of great importance in coastal stability and storm erosion, and mitigation strategies are hampered by incomplete knowledge of the breaking the process. ***